RUI: Highly Correlated Systems of Reduced Dimensionality: A Study of the Fractional Quantum Hall Effect

9420560 Rezayi Numerical work is proposed to investigate some outstanding problems in the phonomenon of the fractionally quantized Hall effect, which is observed in a two-dimensional electron gas subject to a transverse magnetic field. The electron layer is formed at the semi-conductor interface of a high quality gallium-arsenic heterostructure semi-conductor device. The proposed research addresses the nature and properties of the Fermi-Liquid state formed at even fractions of the lowest Landau level occupation, novel parafermion quantum Hall states and the physical conditions which stabilize them, edge states, the quantum fluid to classical Wigner crystal transition, and optical properties of quantum Hall state. %%% This research is aimed at understanding the behavior of a system of electrons (carriers of electric current) confined spatially to a plane and subject to a perpendicular magnetic field as prepared in gallium-arsenic heterostructure devices. Under suitable conditions the electrons exhibit the phenomenon of Fractional Quantum Hall Effect. The phenomenon results from the condensation of electrons into a highly collective state with the little semblance of their initial individual characteristics. This is the subatomic realm of quantum mechanics - an area of considerable scientific interest. In addition, the quantum Hall effect has potential technological applications in semiconductor industry. This RUI research will be carried out at California State University, Los Angeles - a predominantly undergraduate minority institution - and will involve both undergraduate and Master's level students.